CISE Special Project: Research Foundations on Successful Participation of Underrepresented Minorities in Information Technology: A Virtual Conference

9910768
Garcia, Oscar
Wright State University

Special Project: Research Foundations on Successful Participants of Underrepresented Minorities in Information Technology: A Virtual Conference

This project is oriented to finding research directions for the determination and remediation of fundamental causes that prevent underrepresented minorities (Blacks, Hispanics and Native Americans) from participating in the mainstream educational and research opportunities in Information Technology.

The project will be carried out with minimal travel, and will utilize NSF software support for a virtual environment in which the co-Pis, the moderators, and the discussants will interact via the WWW by posting and summarizing ideas, concepts, and opinions on the four topics that we will cover; outreach, teaching, research, and mentoring. The names of the four topics are only labels that we have chosen and incorporate broader implications.

The virtual conference should produce a report that will inform the community of the results of the exchange and will be appropriately disseminated.